Enhanced Systematic Curation of the Wickliffe Mounds Archaeological Collection

9307001 Wesler With support from the National Science Foundation, Dr. Kit Wesler will develop a curation plan for the archaeological materials housed at the Wickliffe Mounds Research Center. These consist of an artifact collection which includes more than 85,000 ceramics, animal remains and lithics. More than 90% of the specimens bear legible provenience labels and result from gridded archaeological excavations. Although the collection is now available for research, additional curation is necessary. Materials need to be properly boxed and data entered into a computerized system. MS. Katherine Singley, a conservation expert will visit the Center and provide needed advice on which a longer term project can be based. The Wickliffe Mounds site is a Mississippi period town-and-mound complex located on the bluffs of the Mississippi River in Ballard County Kentucky. It spans the period from ca. 1100 to 1400 AD and documents the fluorescence of the Mississippi cultures. Although they did not reach a state level of organization, in pre-Columbian times such groups integrated large numbers of individuals, maintained trade networks which spanned large portions of the midwest and undertook large scale constructions. Archaeologists wish to know how such societies which lacked both writing and wheeled vehicles developed and were maintained. Data from sites such as Wickliffe therefore are of great interest. However for such material to be maximally useful, it must be properly curated and catalogued. This project will help to Dr. Wesler to proceed in this direction.